SBIR Phase I: Cost-Effective Manufacture of High-Power Li-Ion Batteries for NGV

This Small Business Innovative Research (SBIR) Phase I project proposes a unique rolled-ribbon cell for a
Lithium-ion battery that has inherent cost advantages for a NGV FreedomCar compact
pulse-power application. It can meet the cost requirements and deliver thousands of
pulses and recharges. The battery is formed by stacking large capacity (5-10Ah), sealed,
125mm diameter, button cells to optimize power capability. The battery design projects
power at 2-4kW/kg and power density at 7.5kW/liter similar to a ultracapacitor, with 20
times greater specific energy at 70-90Wh/kg . Of particular importance to high-power
battery, the rolled-ribbon design overcomes safety concerns by its unique internal heat
dissipation. Perpendicularly oriented electrode foils remove heat from the electrode
interface to the disc-cell hardware without crossing Celgard separator. The high temperature stability of Lithium ion will be enhanced with a flame retardant electrolyte
additive.

The NGV FreedomCar can anticipate a viable safe, high power Li-ion battery using the
rolled-ribbon cell design, that is more compact and cost-effective than ultracapacitors or
other high-power batteries. Improved performance and temperature stability for Li-ion
battery can enhance prospects for the civilian hybrid vehicle market. Gasoline savings
will reduce air pollution and oil imports.